Purchase of X-Ray Diffractometer with CCD Area Detector

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Southern California will acquire an X-ray diffractometer with CCD detector for small molecule diffractometry. This equipment will enhance research in a number of areas including the following: a) studies on metal hydride complexes and other metal compounds; b) covalent fluoride, oxofluoride and nonmetal main group chemistry; c) studies of long lived carbocation salts and related studies; d) studies on organic light-emitting diodes; e) ruthenium complexes as polymerization catalysts; and f) synthetic and mechanistic organotransition metal chemistry.

The X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and it provides accurate information about the spatial arrangement of the molecule relative to the neighboring molecules. These studies will have an impact in a number of areas, including the preparation of more efficient catalysts and materials chemistry.